NGS: Methods to Evaluate the Performance of Distributed Software

EIA-0203971 Gianfranco Ciardo College of William & Mary Structured Methods to Evaluate the Performance of Distributed Software

Our goal is a collaborative research effort aimed at removing the computational barriers to the widespread adoption of Markov chain modeling technology in the software performance engineering process.

We will approach the problem from different and complementary points of view, and have the necessary means to solve many of the remaining computational issues. The results of the proposed research will open up the Markov modeling field to a surge of new, and probably unanticipated, research activity in very diverse areas of national and international importance, and provide a path towards the compositional performance assessment of systems built from off-the-shelf software modules.